A Workstation Cluster for Simulation and Theoretical PhysicsInstruction for Undergraduates

The physics department is introducing a course, Mathematical and Computational Methods for Scientists and in addition is incorporating advanced symbolic computation, numerical analysis, and simulation in other physics courses. Using the symbolic package Mathematica and Macintosh IIci computers connected to an existing network, students are able to explore physical situations which are otherwise too complex. The project is producing courseware using Mathematica which will be useful to other physics departments as well. The college is matching the award with an equal amount of funds.